Workshop on Earthquake Site Response and Seismic Code Provisions

The objective of this Workshop on Earthquake Site Response and Seismic Code Provisions, November 18-20, 1992, University of Southern California, concerns the effects of site response on earthquake ground motions; the aim is to develop recommendations for modifications to existing design guidelines and codes for earthquake site response. It follows on from the Site Effects Workshop held at the University of New York at Buffalo in 1991. Financial support for this workshop is provided by the National Science Foundation, the National Center for Earthquake Engineering Research (NCEER), the U.S. Geological Survey (USGS) and the Southern California Earthquake Center (SCEC). The need to examine the soil categories and site factors (S factors) used in building code site response provisions arises from: (a) concerns with the existing definitions of site factors, and (b) the fact that current building code provisions (that is, soil factors S1 through S3) were developed in the mid-1970's (S4 was added following the 1985 Mexico earthquake). The need for this workshop is further highlighted by the accumulation in recent years of extensive research data and new knowledge on site response effects. It is strongly supported by committees involved in: (a) the planned 1994 revision of the NEHRP (National Earthquake Hazard Reduction Program) Recommended Provisions for The Development of Seismic Regulations for New Buildings; and (b) by the Structural Engineers Association of California's (SEAOC) 1993 planned revision of the "Blue Book". The results from this workshop will provide essential input and recommendations to these committees' activities. The workshop involves geotechnical engineers, seismologists and structural engineers. It is planned to publish the workshop proceedings in March 1993.